Development of a Low Cost, Stable CTD Measurement System for Autonomous Oceanographic Instruments

9711869 Schmitt This award to Woods Hole Oceanographic Institution in Massachusetts supports the development, jointly with industry partner Falmouth Scientific Incorporated, of new, relatively high-precision and inexpensive sensors for the long-term, unattended measurement of ocean salinity, temperature and pressure. It is anticipated that this new class of sensor will be deployed on multi-year drifting buoys to investigate large-scale ocean circulation problems and refine models of ocean circulation and climate. The award includes a substantial cost-share commitment by Woods Hole Oceanographic Institution, and is supported by the Major Research Instrumentation Program and the Division of Ocean Sciences. ***